Connection of Lourdes College to OARnet and NSFNET

9503794 Isaac This proposal requests funds for Lourdes College to connect to NSFNET through OARnet. This connection will provide operations management and information services and it will give the college a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The benefits of this NSFNET connection include e-mail between local and remote researchers and educators, file transfer capability and the ability to use remote computer resources. Also the college will have the ability to investigate innovation in educational resources and incorporate them into their curricula.